Mathematical Sciences: Support for Research on Algorithms, Complexity and Discreteness Criteria in PSL (2,C)

9409115 Gilman The scope of research involves topological and geometric studies of Kleinian groups. This will include designing computational algorithms to investigate complexity for certain classes of such groups. The relationship with the theory of Riemann surfaces and Teichmueller spaces will also be pursued. ***